Synthesis and Analysis of Processes Containing Solids Processing Steps

A large fraction of the products produced by the chemical industry involve solids processes (the term solids processes here refers to plants that involve operations such as crystallization, filtration, dissolution and drying in the main process train). Little work has been done on the design of whole plants that include such processes, including how to identify economic tradeoffs and the integration of different units to minimize costs. Work has been done on crushing and grinding, filtration, crystallization, drying, etc. as separate unit operations, but it is insufficient to view these operations in isolation, more integration of such subsystems is needed to improve the overall process. This research involves the study of the design of plants containing solids processing steps. It deals with three aspects: conceptual design, mathematical modeling in terms of discretized population balance equations, and the development of design methodologies. In conceptual design, hierarchical procedures will be expanded to include vapor-solids systems, and an attempt to cover a wide spectrum of plants including hydrometallurgical processes and the manufacture of catalysts. The procedure will include quantitative heuristics and methods of calculation, such as those for equipment and solvent selection. A framework based on discretized population equations will be developed to account for changes in particle size distribution. This will be accompanied by the formulation of compatible solids processing equipment models for use with the population equations. Case studies will be used to help identify heuristics and to provide future users with concrete examples. A computer code is planned to demonstrate the procedure. Another major goal is the invention and/or systematization of building blocks which are not in the existing repertoire for the design of solids processes. Design procedures for the complete separation of three-solute mixtures using extractive and fractional crystallization, and for the use of fractional crystallization to minimize the loss of products and byproducts to liquid purge streams will be developed. The physics of processing solids is emphasized in all aspects of the program. It is expected that the results could contribute to the design effort of people in industry, both in conceptual design and computer simulation, and provide a coherent body of knowledge and concrete examples for teaching the design of solids processes.*** //